Radiocarbon Dating of Collagen-degraded Bone: The Use of Ostecalcin

Dr. Taylor and his colleagues will conduct exploratory research to determine the feasibility of using osteocalcin to radiocarbon date bone. The project consists of three parts. First osteocalcin will be extracted from sample bone and its purity determined through analysis of amounts of Gla and Hyp present. Secondly osteocalcin will be extracted from bone with known age of greater than 100,000 years and then radiocarbon dated. One would expect that radioactive activity would not exceed background levels. Finally osteocalcin will be extracted from degraded bone which derives from Clovis age sites (ca. 10,000 years old). This also will be radiocarbon dated and the accuracy of the results determined. Most of the organic fraction of bone consists of collagen and many experiments have shown that if this collagen is not seriously degraded by post depositional processes it can yield accurate radiocarbon ages. However it is also clear that degraded collagen often given anomalous results. Osteocalcin is a non- collagen organic material which is also present in bone and preliminary results lead Taylor and his colleagues to believe that it may provide accurate dates for degraded bone. This preliminary exploratory project will serve to evaluate this approach and hopefully provide the basis for more large scale work. This research is important not only for archaeologists but other scientists who wish to date the past. Bone is often the only organic material preserved in archaeological sites and other prehistoric contexts. While it is sometimes datable, often it is too chemically altered to give good results. The technique developed here may remedy this problem.